ARCSS Land-Atmosphere-Ice Interactions (LAII) Science Management Office

9403647 Weller The LAII Science Management Office, located at the University of Alaska Fairbanks, is part of the LAII-Flux Study, but is also involved in the integration and coordination of the Flux Study within the broader aspects of LAII, and indeed the entire Arctic System Science program of NSF. The SMO will also establish connections to other international programs of global change research in the Arctic. The SMO will facilitate project planning and integration by providing active scientific leadership and coordination service to the LAII projects, by holding science planning and synthesis meetings, providing communications between PIs and ensuring linkages to related programs. Specifically, long-term science plans for the Flux Study will be developed, modeling and data management requirements will be specified in the context of the overall ARCSS program, and logistics needs will be coordinated. The SMO will be advised by an Executive Committee of four, including the director of the SMO, and a Steering Committee of both external members and LAII PIs. The establishment of the LAII Science Management Office is in response to a recommendation from the NSF review panel for the LAII Flux Study. ***